Computerization of Concordia's Introductory Physics/Earth Science Laboratory

Concordia College will improve the quality of physics and earth science instruction by instrumenting computer controlled experiments. These will increase the accuracy and precision of data gathered in experiments, and speed the calculations needed to convert raw data into usable data, so that the time normally spent on these activities can instead be used in analyzing data and drawing conclusion from them. The major purchases will be two Apple computers, interface cards, sensors, a printer, and a plotter to provide hard copies of the data gathered and manipulated. The sensors will be used measure time intervals, temperatures, frequencies, and weather phenomena. Most of the students taking physics and earth science courses at Concordia are studying to become elementary and secondary school teachers.